Space Weather: Shocks, Flares and Coronal Mass Elections

The investigators will develop detailed physical pictures of a number of geoeffective solar eruptive events to serve as a reference for future data acquisition, analysis and forecasting of space weather. Events in question occured in the pre-solar maximum epoch, and hence avoid confusion from the overlap of different events. The approach is to identify the drivers of coronal and interplanetary shocks by analyzing more than two dozen type II radio bursts in conjunction with other data. For the first time, actual coronagraph data and flow speed will be used to determine the speed and starting height of coronal and interplanetary shocks.